Industry-University Cooperative Research: Natural Convectionin Cavities: Materials Processing and Other Applications

This research concerns heat transfer by natural convection. Thermally driven cavity flows at high Raleigh number occur in a wide variety of scientific and industrial applications. Of particular concern to the semi-conductor industry are convective flows that arise in the preparation from the melt of high quality substrate materials. The manufacture of opto-electronic solid state devices for communications technology requires substrates of greater purity and homogeneity. Current device considerations also make it desirable to grow crystals of larger diameter by increasing the melt size. These production problems are influenced by the convection patterns generated by changes in the melt geometry. Horizontal growth techniques of the gradient freeze type are known to be strongly dependent on such scale effects. Some vertical growth methods can have stagnant zones in the lower part of the melt which also lead to manufacturing difficulties. The investigation will consist of a comprehensive examination of these cavity flows with specific reference to their aspect ratio dependence and to the overall heat transfer across the cavity.